Workshop on the Study of the Design Process, Oakland, California, February 9-10, 1987

The Design Theory and Methodology program has been in existence for one of its primary goals is to develop a recognized discipline of design with an active community of researchers. This workshop will provide an avenue for exchange of ideas among this developing community, particularly among those who have research grants from the design theory program and those who have participated in the program through advisory and review panels. At the workshop, the current grantees will make oral presentations that will be followed by smaller group discussion focused on research issues in design theory and methodology. The results of the workship will be disseminated to a wider audience by publication of a book that contains the presentations plus summaries of the discussion.